Arm-Leg Coordination of Multilimbed Industrial Robots

Multilimbed industrial robots (robots that have at least one arm and two or more legs) are suggested for improving robot performance in industrial automation. Because of the legged mobility, a multilimbed robot has three advantages in comparison with an ordinary arm: (1) a large reachable work space, (2) arm degeneracy avoidance, and (3) large force exertion by the hand. To plan multilimbed robot motion, the arm-leg motion coordination problem is studied through task decomposition. Specifically, a given task is decomposed into subtasks for arm manipulation and for leg locomotion. The former is defined as the end-effector motion with respect to the main body, and the latter as the motion of the main body itself. For optimal decomposition of a given task, three criteria are proposed: least-energy, best-manipulability, and minimum-effort.